International Research Fellow Awards: Descent of Quaternion Algebras and Applications to Galois Theory

9810299 Swallow The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twentyfour months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. John R. Swallow of Davidson College to work with Dr. Jack Sonn at Technion-Israel Institute of Technology in Haifa, Israel on the descent of quaternion algebras and applications to Galois Theory. They will develop new, primarily constructive techniques for 1) the realization of groups as Galois groups and 2) the determination of the equivalence of quadratic forms over number fields, using a theory of descent connecting quadratic form theory with obstructions to central Galois embedding problems. One of the likely outcomes of this work will be the realization of certain 2-groups that are not known to occur. This will provide connections between the Inverse Galois Problem and the theory of quaternionic algebras and quadratic forms. Dr. Sonn is the leading expert in the theory of central embedding problems. ***